Computer Information Science and Engineering Research Instrumentation

Video research equipment will be provided for researchers at the University of Utah for research in the Department of Computer Science. The equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering. The research for which the equipment is be be used will be in the area(s) of 1. Solid Modeling 2. Computer Animation 3. Image Processing and Vision Modeling 4. Computer Vision and Robotics 5. Micro Electro-Mechanical Systems (Center for Engineering Design)